Special Project: Innovations in Computing and Communications: Lessons from History

; R o o t E n t r y F / C o m p O b j b W o r d D o c u m e n t I O b j e c t P o o l / / $ ! " # % & ' ( ) * + , - . / 0 1 2 3 4 5 6 7 8 9 : ; < = > ? @ A B C D E F G H I J K F Microsoft Word 6.0 Document MSWordDoc Word.Document.6 ; e = e d I d j j j j j j j { C T 7 { j { j j j j ~ j j j j 4 9529482 Blumenthal The Computer Science and Telecommunications Board is undertaking study to address the history of key innovations in information technology and their economic impacts. The committee will collect and document more fully than has been done to date the histories of key information technologies and see what can and cannot be reliably quantified (including confidence assessments on what can be quantified); derive inference for public policy from the historical and analytical material; and produce a report summarizing the findings of the committee and articulating their recommendations. *** ; S u m m a r y I n f o r m a t i o n ( Oh +' 0 $ H l D h R:\WWUSER\TEMPLATE\NORMAL.DOT 9529482 Tracey Zeigler Tracey Zeigler @ :& @ @ :& @ F # Microsoft Word 6.0 1 ; c d c _ d ! ! ! ! K @ Normal a " A@ " D efault Paragraph Font d d d d 4 Tracey Zeigler"\\CLM18\TZEIGLE$\WWUSER\BLOOMY.DOC @HP LaserJet 4/4M LPT1: HPPCL5E HP LaserJet 4/4M D k @ X HP LaserJet 4/4M D k @ X C Times New Roman Symbol & Arial 5 Courier New " h k e k e $ 7 9529482 Tracey Zeigler Tracey Zeigler ; ;